WHOI CTD/Hydrography Support of U.S. WHP Line P16C: Tahiti to Hawaii

Continuous profiles of temperature and salinity using a CTD instrument, and discrete water samples for salinity and dissolved oxygen will be collected as part of the WOCE Hydrographic Program. The line designated P16C running between Tahiti and Hawaii during September-October 1991.